BIOCOMPLEXITY--INCUBATION ACTIVITY: The Mathematics of Network Dynamics in Biological, Social, and Economic Systems

Laubenbacher
DMS-0083595

Abstract:
This Biocomplexity incubation activity proposal will study the emergent properties of ecological systems by applying new techniques from algebraic combinatorics, as well as methods from mathematical logic and statistical physics. Based on these methods, we will develop an integrated conceptual framework to analyze global properties arising from the connectivity structure among species and their constraints. Within this framework, the researchers will analyze specific ecosystems, by employing a set of formal mathematical/combinatorial tools.

To accomplish these goals the project includes the following activities: regular meetings of project personnel and visitors to collaborate and create a common knowledge base; a four-day international workshop hall on "The mathematics of network dynamics in biological, social, and economic systems;" and simulation and analysis of specific systems. The results of these simulations will be used to refine our theoretical approach.